Identification of Biochemical Messengers in Herbivores that Modulate Plant Growth and Development

9630347 Dyer The proposed research suggests that grazing animals contain specific biochemicals in their salivary or digestive systems that regulate plant growth. In earlier NSF-sponsored research the investigators obtained evidence that very low concentrations of a specific group of proteins found in grasshopper regurgitants can increase plant growth, but that large dosages may cause reductions. In this project they will isolate and identify these specific plant growth compounds. This work will give new insight about how such novel growth regulators not found normally in plants may affect the physiology, and the growth and development of the plant after it has been grazed. New information about this plant-animal interaction holds promise for a better understanding of how large animal grazers and pest populations of insects may influence plant production in grasslands and agricultural crops.